Collaborative Research: Building Marine Sediment Analogs to the Polar Ice Cores in the South Atlantic Sector of the Southern Ocean

This award will support the generation of planktic and benthic foraminiferal stable isotope data, and concentration of ice-rafted detritus, at multi-century-scale resolution for sediment cores from the Southern Ocean Spanning the last half million years. The data will be used to determine how millenial-scale variability has evolved during the late Pleistocene and its relation to orbital forcing.